Chemistry for Children: A Program for Elementary School Teachers in Precollege Chemistry

Chemistry for Children: A Program for Elementary School Teachers in Precollege Chemistry will introduce experiences with chemistry at a level appropriate to elementary teachers with little or no background in chemistry, and will be presented in such a way that the teachers can translate the experiences into safe, hands-on, exciting activities for their students in elementary school. Twenty-five teachers will be given the educational experiences in three-week summer workshops in each of two summers and an academic year one-week workshop at Mansfield University to act as resource persons for other teachers. PI Arnold George and Co-PI Robert Johnson have previously completed an outstanding 150 page book of activities Chemistry for Children and an accompanying in-service guide (TEI 85-50036) which will be further disseminated through this project.